STTR Phase I: Digital Mental Health for Children and Adolescents

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is improved children’s mental and behavioral health via the creation of a platform that unifies the silos of healthcare and education to put children and families first. Due in part to the current pandemic, there is an increased need to support children’s mental and behavioral health. The end-users are the 28 million children between 8-12 years old in America. The team is advancing patient-centered care and personalized education. After the platform is tested for an initial age group of 8-12-year-olds, the plan is to expand the platform across the age-span, including early childhood through senior adults. The platform promises engaging, self-contained, adaptable, safe, and research-based support and learning. The team expects to grow their market share through strategic partnerships with healthcare, education, industry, and non-profit partners.

This Small Business Innovation Research Phase I project focuses on leveraging technology, including natural language processing, machine learning, and chatbots, to provide information to students, families, and educators about mental and behavioral health and to get feedback from these groups through their web-based computing devices. This project seeks to develop an online platform that will engage students and allow them to leverage personal care resources aimed at building resilience and providing them access to support and information customized to their individual needs. This Phase I project focuses on building a proof-of-concept platform that provides precision mental health solutions by combining interactive health and wellness methods with engaging content personalized and delivered by machine learning technologies and tools.